Discrete Mathematics, Probability and Statistics

The proposed project intends to offer a six-week summer workshop for 28 high school mathematics teachers. The two major components of the workshop are courses in discrete mathematics and one in probability and statistics, each for four quarter hours of credit. In addition to these courses, there is to be a seminar devoted to sharing of ideas and the evaluation and development of resource materials for use in secondary school mathematics classes. Throughout the summer workshop and the academic year, microcomputers will be used as tools to teach mathematics as the teachers are encouraged to plan ways to use computers to make their teaching of these relatively new topics more effective. During the academic year following the workshop there will be monthly seminars for the participants. The project staff will visit each of the participants at their schools at least twice during the year; also, the staff will be available as consultants as needed by the participants throughout the year to facilitate their learning and application of the mathematical concepts of the two major courses that may be new to them. The topics in discrete mathematics, especially elementary combinatorics, are important in the considerations of curricular revision at the secondary school level. Several recommendations to revise the mathematics curriculum have placed a great emphasis on topics from discrete mathematics. These courses did not exist, for the most part, when the present crop of high school mathematics teachers were in their teacher preparation programs and yet many of the topics in the courses are now to be included in the courses the teachers are expected to teach. It is essentially the education of the material as well as the adaptation of the concepts to the school program that is the thrust of this project.